Undergraduate Ultra High Vacuum Facility

The educational goal of the experiments to be carried out with this system is to provide the student with a quantitative approach to vacuum technology and serve as an introduction to surface physics phenomena. The facility will enable experiments that investigate the physics of producing and measuring a vacuum, the interaction of atoms with solid surfaces, and electron beam experiments.